ITR: Reliable Distributed Programming with Speculations

ITR: Reliable Distributed Programming with Speculations

Abstract

It has been well established that the United States needs better
programming technology to assure the safety and reliability of the
nation's software infrastructure. The National Research Council, the
President's commission on critical infrastructure protection, and the
PITAC report reach similar conclusions: that the nation depends on
fragile software, and technologies for building reliable software are
inadequate. To address these problems, this research develops a new
programming model, called speculations, for ensuring software
reliability.

A speculation is a computation that depends on an assumption that may
be difficult or impossible to verify prior to evaluating the
computation. If the assumption is later found to be false, the
computation is rolled back. Speculations are especially useful in
distributed systems, where failures are inevitable: the network may
fail, processors may fail, and the code itself may have errors. In
this new approach, speculations are used to wrap potentially unsafe
computations. If a fault occurs, the program is restored to a
well-known program state where the fault can be easily resolved.

The research develops the theory and design automation tools for
speculations in three parts: first, the programming language theory is
expanded to provide a basis for speculation; second, the theory is
used to implement compiler and operating system extensions that
automate the support for speculations; and third, speculations are
used to develop new distributed communication protocols and
algorithms. Speculations conform to a widely-understood design model
based on transactions, easing deployment as a general-purpose
programming tool. The results of the research are open source and
freely available.